Minority Postdoctoral Research Fellowship

This applicant proposes to study cellular and molecular mechanisms for memory storage in the brain. Specifically, the study is expected to focus on the role of the calcium-calmodulin complex in regulation of the gene expression of proenkephalin and the induction and maintenance of mossy fiber long-term potentiation. The work is planned to take place in the laboratory of Dr. Joe Martinez at the University of California, Berkeley.